SBIR Phase I: Low Cost Manufacture of Refractive Index Gradient (GRIN) Lens

*** 9661615 ZHENG This Small Business Innovation Research Phase II is directed towards optical materials which contain a distributed refractive index and are used in lens design are called gradient-index (GRIN) materials which have wide applications in optical systems. In this proposed research, we plan to integrate the supercritical drying technique for the fabrication of axial GRIN glasses via the layering of sol-gel solutions, since this technique has been proven to be low cost and fast process. In addition, new glass compositions will be tested in order to achieve good chemical durability. The principal application of this AGRIN lens is in various optical systems. The use of axial GRIN lenses can reduce one third of lenses. The proposed sol-gel layering technique is expected to be universal and promising way to make low cost and designable axial GRIN lenses in optical systems. ***